LTREB: The Population and Community Dynamics of Desert Winter Annuals

0212782
Venable
This LTREB proposal is to extend the continuous record of population and community dynamics
of desert winter annual plants on permanent plots at a Sonoran Desert site at the Desert
Laboratory near Tucson, AZ, USA. It will clarify and extend the understanding of demographic
variation and covariation and its role in population and community processes. Data on
germination, survival and reproduction of desert annual plants will be continuously monitored on
long-term plots established from 10 to 19 years ago at locations both under shrub canopies and in
the open at this field station. Delayed germination and between year seed carry over are thought
to be important for the persistence of desert annuals, so the magnitude of the soil seed reserves
will be monitored and determine what fraction germinate in each year for each species under
shrubs and in the open. Seeds will be separated from standardized soil samples and tested for
viability. The results of this research will be analyzed together with weather data to determine
how climatic variation determines population variation for these annual plant species. The
investigators will then construct population and community models of this desert annual system.
These models will be used to explore the role of soil seed banks in buffering populations in the
face of environmental variation. They will also be used to investigate how life history
differences among species promote their coexistence and species diversity.
Desert annual plants have played an important role as model organisms in the development of our
understanding of how organisms adapt to variable and unpredictable environments. They have
also been used to exemplify ideas about non-equilibrium community dynamics in variable
environments. Yet their dynamics are not well known empirically, especially the behavior of
seeds. This project will provide the best available long-term data for evaluating these ideas.
There has been considerable theoretical and experimental work carried out on the evolutionary
ecology, population ecology and community ecology of this system. Such combinations of
theoretical and experimental work with long-term observations are proving to be a powerful
approach to yield new insights and syntheses in plant ecology.
This research will further the goal of combining research and education by virtue of occurring in
the academic environment of a major research university. Graduate and undergraduate students
will be involved in capacities that fosters hands-on training and research experience that
complements formal coursework. Ph.D., Masters, and undergraduate honors projects will be
facilitated as part of or offshoots of this research. REU support will be sought for related
undergraduate projects. In the first phase of this research more than half of the undergraduate
and graduate participants in this project were women and an attempt will be made to include a
high percentage of women in the proposed research. The PI will endeavor to include
underrepresented ethnic and cultural groups in this research by working with minority access
programs on campus.